Curves Over Finite Fields and Deligne's Conjectures

deJong
9970049
We propose to study certain groups that are associated with algebraic
curves over finite fields. The groups in question can be viewed as the
automorphism groups of unramified coverings of a fixed algebraic curve
over a finite field which is also fixed throughout the discussion.
As we let vary the coverings we obtain a system of groups, which is
called the algebraic fundamental group of the curve; this concept was
introduced by Grothendieck. The algebraic fundamental group mixes in
a fascinating way the arithmetic of the finite field and the geometry
of the curve in question. In particular, one can associate to a
point on the curve a certain conjugacy class in this group, consisting
of the so-called Frobenius elements. The question which we would like
to answer is: What is the (relative) position of these Frobenius elements
in the group?

The general area of research of the project is Arithmetic Algebraic
Geometry. Roughly speaking, the Algebra refers to the fact that we
work mainly with polynomials as far as functions are concerned.
We define geometric objects byequating to zero a few of these
polynomials. Such an object is called an algebraic set or a variety.
It turns out that there is a surprisingly rich geometry of these
objects, especially if we consider equations in higher dimensions
and of higher degree. The arithmetical aspect comes into play
when we consider only those polynomials which have integers
(or rational numbers) as coefficients. These objects have wide-ranging
applications in number theory, geometry, and the theory of data security.